Support of the Continuing Activities of the U.S. National Committee on Tunneling Technology

Support is provided for the U.S. Committee on Tunneling Technology. Major activities of this committee are related to the technical issues involving the stability of subsurface openings. Past activities by the committee have helped to achieve a national focus on geotechnical research for earthquake lifeline engineering. The committee plans to address several key issues in subsurface tunneling, hazards associated with subsurface openings, and the earthquake impact of tunnels and underground openings.